Innovation in Photoelectrodes for the Splitting of Water

The research will attempt to reduce to practice a "hot electron" photocathode that has been described in theory. If successful, this would provide a viable, and perhaps economically feasible, method for solar-powered chemical processes, specifically photo-electrolysis of water to produce hydrogen and oxygen.